Oceanographic Instrumentation

Program Summary: The oceanographic instrumentation program supports requests to acquire instrumentation for the collection, processing and analysis of oceanographic data. This proposal from Bermuda Biological Station (BBS) Research Institute requests funding for equipment that will be used to support NSF-funded research cruises aboard the R/V WEATHERBIRD II, a vessel that is owned and operated by the Institute.